Fourth International Symposium on Resonance Ionization Spectroscopy and Its Applications; Gaithersburg, Maryland; Spring 1988 (Physics)

This conference covers a new and important topic . resonance ionization spectroscopy . that is one of the new aspects of atomic physics made possible by the "laser revolution". "R.I.S." is still expanding, as both new fundamental and applied uses are found. This conference is the fourth in a series of international meetings focussing on this topic. It has proven to be a unique and necessary meeting point for those involved in this research, speeding the flow of ideas and results. The latest meeting, held at NBS near Washington, D.C., will be equally valuable.